Specialized Algorithms for Tomographic Reconstruction of Electron Density Distributions in the Ionosphere

Ionospheric tomography is a new and innovative method for two- dimensional reconstruction of distribution in the ionosphere. Reconstructing high resolution images of electron density distributions would allow communication systems to compensate for the irregularities in these distributions which cause significant interference. Accurate images of these irregularities would also assist in the determination of their origins. Previously, remote sensing techniques were limited to measuring these distributions integrated over a path, or at individual locations. Current reconstruction techniques are based upon x-ray tomography algorithms which are not well-suited for ionospheric tomography due to the geometry of the data acquisition system. The differences between these systems cause considerable resolution degradation in the reconstructed images. This proposal is for preliminary studies in the development of specialized algorithms for ionospheric tomography. Substantial a priori information on the formation of these distributions is available and ionosonde measurements provide accurate values at specific locations. This a priori information can be used in specialized algorithms to compensate for the geometric limitations of the data acquisition system. The program of research would be for 18 months from the start of the project. Upon completion of preliminary investigations, a full-scale research proposal would be developed.